Micromanipulation Workstation for the Production of Transgenic and Gene Targeted Mice

The objective of this proposal is to provide powerful, state- of-the-art instrumentation for the production of genetically altered mice. This specialized equipment will provide investigators with the ability to go from a cloned DNA molecule to genetically altered mice. These animals allow the biological study of gene function in developmental and physiological processes in the whole organism. This instrumentation will enable the University of Michigan Transgenic Animal Core to meet the research demands of a growing number of investigators. Demand for transgenic technology is constantly increasing due to the excellent success rate of the Core and the power of this technology to enhance basic science knowledge.